Aerosol Characterization Experiment (ACE)-ASIA: In-situ Measurement of Lidar Ratio, Aerosol Extinction-to-Backscatter, and Its Dependence on Particle Size and Relative Humidity

In this project, aerosol integral light scattering and 180 degree backscattering will be measured from the C-130 aircraft during ACE-Asia (Aerosol Characterization Experiment). In addition, the extinction-to-backscatter ratio (lidar ratio) will be determined, a crucial parameter needed for the quantitative interpretation of lidar data. It is expected to vary with air mass (depending on source of air, aerosol size, and chemical composition) and relative humidity. Airborne measurements will provide data for a large range of conditions.

Measurements of aerosol optical properties, such as these are essential for characterizing aerosols and their role in the Earth's radiative balance and thus climate.